Global Climate Model Simulations of the Present Arctic Climate

This study is a comparison and evaluation of the modern arctic climate as simulated by seven general circulation models (GCM). While most GCM's project an amplified climatic response in polar regions to increasing concentrations of greenhouse gases, the responses of individual models vary, and appear to depend to some extent on the formulation of the model. The objective of the intercomparison study is to identify the common biases for all seven models, and the differences in biases among models with respect to such climatic simulations as sea-level pressure, temperature, precipitation, storm tracks, clouds, and radiation exchange. Model performance will be constrained with existing data sets whenever feasible. The GCM's to be evaluated are those developed by the National Center for Atmospheric Research (NCAR CCM2), the European Centre for Medium-Range Weather Forecasting (ECMWF), the Geophysical Fluid Dynamics Laboratory of NOAA (GFDL), the Goddard Institute for Space Studies of NASA (GISS), the Numerical Weather Center of NOAA (NMC), the University of California, Los Angeles (UCLA), and the United Kingdom Meteorological Office (UKMO). Computation time will be made available on the CRAY Y-MP of the Ohio Supercomputer Center.